Japanese Industrial Earthquake Risk Reduction Programs and Their Applicability in the United States

Japan is ahead of the U.S. in introducing significant earthquake hazard reduction and preparedness innovations, particularly when it comes to the industrial sector. Thus, the U.S. could learn a great deal from Japan in this regard. This project will assess the applicability of Japanese industrial earthquake risk reduction practices to the U.S. by comparing existing practices among Japanese and U.S. firms. The emphasis of the study will be on private sector measures. The process whereby earthquake risk reduction activities have evolved and their funding and place within the corporate structure will be studied. In addition, existing engineering-oriented solutions will be analyzed. The interaction between government agencies and the private sector in promoting risk-reduction practices will also be investigated. Data will be collected in both countries through site inspections at relevant institutions, interviews with key officials, and the acquisition and analysis of documentary information.